1987 Gordon Conference: Statistics on Chemistry and Chemical Engineering, July 27-31, 1987, New Hampton, NH

A Grant to help support a Gordon Conference on Statistics in Chemistry and Chemical Engineering is recommended at $3,000 out of FY87 funds. This conference will provide an excellent opportunity for the interchange of ideas between three disciplines. Research statisticians will be exposed to important real problems in chemistry and chemical engineering, applied chemists and statisticians will learn firsthand about new statistical methods that can be used in their work, and research chemists and chemical engineers can test their statistical ideas with statisticians.